Design of Low Molecular Weight Displacers for Protein Purification by Ion Exchange Displacement Chromatography

9412737 Cramer This project is on research to study the design of low molecular weight displacers for the simultaneous concentration and purification of proteins by displacement chromatography, and will focus on the relationships between displacer chemistry and efficacy for protein displacement. Included in this project are experiments with defined protein mixtures to examine the effects of the polymer synthesis of displacers on dynamic affinity. The effects of induced salt gradients on the ability to concentrate will also be studied. A major issue will be to determine how to design for sufficient affinity while not producing inordinately high induced salt gradients. Also, operational issues such as ease of removal from contaminated zones and column regeneration will be examined. Finally, experiments will test the ability of the displacers developed in this research to purify proteins from complex biological mixtures. The long term goal is to facilitate the implementation of this new technology for industrial bioseparations. ***